Enhancements in Experimental Nuclear Physics

The goal of this project is to increase the number and quality of nuclear physics experiments for students at Gustavus Adolphus College. The current apparatus for experimental nuclear physics has some major shortcomings: there is only one computerized multi channel analyzer, there is no equipment for beta spectroscopy or high-resolution gamma spectroscopy, and no equipment for fast timing experiments. This grant will eliminate these problems by allowing acquisition of an additional multi channel analyzer, a thick surface barrier detector, a HPGe detector, several scintillators, and fast NIM electronics. The addition of this equipment will allow development of many new and innovative experiments and will significantly enhance the nuclear physics component of our current upper-division Experimental Modern Physics course. It will also be essential in the regularized offering of a Nuclear Physics course.